ITR: Systems for Learning Science and Assessing Student Learning

EIA- 0086142
Slator, Brian
North Dakota State University, Fargo

Title: Information Technology Research: Systems for Learning Science and Assessing Student Learning

This five-year project to study science learning in authentic, immersive,
virtual environments involving 1) simulated environments for teaching
science topics, each framed according to a theoretical approach, role-based
learning, 2) an innovative, integrated, distributed software platform for
developing and hosting virtual environments, 3) empirical studies using an
innovative protocol, scenario-based assessment, for measuring student
learning in virtual worlds, and 4) a graduate-level summer school course
for in-service teachers who will be trained, beginning in year three, to
use virtual environments in their classrooms. This interdisciplinary
project, in part, depends on fundamental computer science research in the
areas of distributed systems, software agents and intelligent tutoring, and
virtual environments. The intent of this research is to produce a large,
controlled study demonstrating the statistical significance of the impact
of the above methods on student learning.